Analysis of Optical Data from Program CEDAR

This proposal is to further develop a comprehensive model of the physical and chemical reactions occurring in the thermosphere during auroral precipitation events, and to use them to interpret spectrographic observations from recent and planned CEDAR campaigns. The result will be information on the energy distribution of incident electrons and protons, and changes in atmospheric composition as a result of the precipitation. The proposed work is likely to lead to a significant advance in our ability to use ground based observations to infer the physics and chemistry of auroral effects on the atmosphere, including heating effects and composition changes. There is a current need for such an interpretive capability, which will be increasing during the next few years, as the CEDAR campaigns of coordinated auroral observations produce extensive data sets. The PI is highly qualified to perform such work, as he has developed the most comprehensive model currently available for such work.